Northwest Indian College-MST Reform

Northwest Indian College (NWIC) proposes a Developmental effort to maintain a
comprehensive and sustainable systemic reform effort in mathematics, science, and
technology for its service area. In doing so, NWIC will utilize the lessons learned from
TCRSI Phase I activities and will continue to promote the NSF drivers while at the same
time seeking current strategies to assist in their effort to have a comprehensive program
that will catapult the surrounding schools and their students to meet the National
standards. Special emphasis will be placed on a holistic approach to community reform
using RSI activities as a springboard for a comprehensive reform effort.
The primarily goals of the Northwest Indian College RSI program is to establish a center
for surrounding schools that will provide comprehensive services in systemic reform of
mathematics, science and technology.

The NWIC proposes to develop a system in which the following will be promoted:
1. Promote school- and district-based mathematics and science education reform.
2. Provide comprehensive professional development for school-wide, rather than
individual teacher, participation.
3. Advocate for opportunities that foster systemic reform.
4. Serve as a catalyst for educational, business/industry and parent communities to
work together to advance science and mathematics education for all students.
5. Reach large numbers of schools, including those with high minority/low income
populations, through regional and statewide networking.
6. Create site-based leadership capacity.

The overall goals are:
To prepare citizens who value critical thinking, mathematics, science and life-long learning.
To increase the numbers of students appropriately prepare in mathematics and science
in this rapidly change age of technology and information.
To foster public understanding and support of mathematics, science and technology by
all stakeholders.
To help NWIC site schools to meet local, state and federal requirements and provide
all their students with the best possible education.